Conference: 2023 NSF Louis Stokes Alliances for Minority Participation (LSAMP) Principal Investigators/Project Directors (PIs/PDs) Meeting

The Louis Stokes Alliances for Minority Participation (LSAMP) program assists universities and colleges in diversifying the science, technology, engineering, and mathematics (STEM) workforce through their efforts at significantly increasing the numbers of students from historically underrepresented minority populations (Blacks and African Americans, Alaska Natives, American Indians, Hispanic and Latino Americans, Native Hawaiians, and Native Pacific Islanders) to successfully complete high-quality degree programs in STEM.

Chicago State University (CSU) will organize and convene a meeting of the LSAMP grantee community which will occur in-person in Washington, DC over 3.5 days at the beginning of June 2023. The event will provide a forum for updates on NSF funding opportunities, policies and procedures. Additionally, participants will share successful practices in STEM broadening participation post-pandemic. Activities will include recognition of the 20th Anniversary of the Bridge to the Doctorate (BD) Activity, established in 2003. A career fair and the launch of the BD Mentorship Program, in conjunction with the Louis Stokes Midwest Regional Center of Excellence, a collaboration with CSU and Indiana University Purdue University Indianapolis (IUPUI), is planned.

All LSAMP program grantees, selected BD participants, and representatives from federal laboratories and the corporate sector will participate. Proceedings from the meeting will be disseminated broadly via the organizer's websites.